EFRI-MIKS: Control of Signaling and Function by Design with Spatially Pre-Structured Microbial Communities

1137089
Ismagilov
This project aims to develop a rigorous engineering framework to enhance understanding of interspecies
and interkingdom signaling in order to enable building of "microbiome in a pill" particles precisely
engineered, spatially structured microbial communities encapsulated in a biocompatible material to
ultimately prevent and treat human diseases associated with dysbiosis (microbial imbalance). This
engineering framework will enable prediction and control of interspecies signaling and interactions both in
vitro and in vivo by solving four challenges: Goal 1 (MIKS1a): Use computational methods to predict, for
a given desired function, which specific microbes are needed and which spatial structures are required to
achieve that function. Goal 2 (MIKS1b and MIKS2): Develop in vitro microfluidic technologies and
associated design principles to understand signaling by rapidly characterizing and measuring the impact
of spatial structure on the complex molecular interactions that underlie signaling, and host cells’ response
to signaling. Goal 3 (MIKS2 and MIKS3): Develop and test design principles for the scale up of spatially
pre-structured microbial communities, discovered and characterized in Goals 1 and 2, to enable
production of engineered functional communities in gram quantities needed for in vivo testing. Goal 4
(MIKS2 and MIKS3): By using communities produced in Goal 3, and by gavaging them into germ-free
and gnotobiotic mice, measure in vivo the function of the community and the host's response, and iterate
with Goals 1-3 to develop a set of design rules that enable rational engineering of spatially pre-structured
"microbiome in a pill" particles that predictably function in vivo in a mammalian gut.
Intellectual Merit: The importance of multi-species and inter-kingdom systems and their signaling is
widely appreciated but general engineering approaches for control of such systems are urgently needed.
This project proposes that signaling and interactions can be precisely engineered via a biomimetic
approach control of spatial structure. This is a potentially transformative shift in understanding how
signaling, metabolic exchange, and function of communities are controlled. The mammalian microbiome
is an excellent test system because it contains a diverse number of species interacting with one another
and the host. This work will lay the foundation for a new engineering paradigm, a "microbiome in a pill",
and establish design principles for controlling signaling and metabolic exchange within the community,
between the community and competitors, and between the community and the host. Engineering
communities with spatial structure may close important gaps in understanding the mechanisms of
dysbiosis and manipulating communities affected by dysbiosis, ultimately leading to more effective
prophylactics and treatments for human disease. The assembled team is well-qualified to carry out the
proposed work: The PI has expertise in microfluidic technology development, and analysis and modeling
of complex networks in biological contexts. Co-PIs Meyer and Henry are experts in automated annotation
of metagenomic datasets and in using these annotations to create and analyze genome-scale metabolic
models. Co-PIs Chervonsky and Mazmanian are experts in the use of germ-free and gnotobiotic animal
models to understand the impact of microbiota in the mammalian gut on the host immune system.
Broader Impact: Ultimately, the simple yet precisely engineered "microbiome in a pill" communities
designed in this work could dramatically improve quality of life and reduce healthcare costs by modulating
dysbiosis in the context of conditions affecting millions of Americans: IBD, infections, diabetes,
autoimmune conditions, and obesity. This approach may pioneer new solutions for problems where
genetically modified microorganisms are not acceptable or feasible. The design rules for building
functional microbial communities developed here should have broad impact outside of human health, with
the potential to address numerous issues facing society today, including environmental contaminants,
climate, and food and fuel production, which are all strongly impacted by the function of microbial
communities. The project will provide education, training, and mentoring for graduate and undergraduate
students and postdoctoral scholars, enhanced by the PI's excellent track record in mentoring students.
This project will also provide researchers with numerous tools to study and use microbial communities for
specific functions. Co-PIs Meyer and Henry have extensive track records in disseminating computational
methods and tools, and the PI has an excellent track record of disseminating knowledge via high-impact
publications and partnerships with industry. This project will support public outreach through REEL
Science, hands-on science for K-12 curriculum development through CalTech Classroom Connection,
and research training for teachers and high school students through the Summer Research Connection.